COLLABORATIVE RESEARCH: Continuation of a GPS-Based Study of Slip Along The Rivera Subduction Interface Following the October 9, 1995 Mw=8.0 Jalisco Earthquake

We propose to continue a GPS-based study of the Rivera and northern
Cocos subduction zones using an existing 24 site GPS network in western
Mexico. Our specific goals are to discriminate between the predictions
of elastic-slip-at-depth and viscous-flow-at-depth models for
postseismic motion, to determine whether postseismic slip decays within a
few years of the earthquake and is immediately followed by a resumption
of steady interseismic strain accumulation, to assess whether interseismic
strain accumulation is focused along parts of the subduction interface
that accommodated the most coseismic slip, to determine whether
barriers to the coseismic rupture (e.g. velocity-strengthening regions)
correspond to regions of significant afterslip, as might be expected if
friction along the subduction fault obeys rate- and state-variable
constitutive laws, and to determine whether interseismic strain
is consistent with a fully-locked fault, as comparisons of expected plate
slip versus coseismically-released slip suggest. Toward these goals,
we will continue annual and continuous occupations of the network,
and intensive modeling of postseismic displacements.